International Travel Grant for Participants in PSE '94 (Kyongju, Korea) and ADCHEM '94 (Kyoto, Japan)

9319949 University of Texas-Austin Thomas F. Edgar ABSTRACT The purpose of this award is to help support travel costs and registration fees of academic participants from the United States at two international conferences on control and computer-aided process design, modeling, and manufacturing. These meetings are ADCHEM '94 (Kyoto, Japan) and PSE '94 (Kyongju, Korea) to be held on successive weeks at the end of May and beginning of June in 1994. Twenty four U. S. academic program participants will receive a minimum allocation of $500, with travel support also going to other U.S. faculty and, particularly, young faculty. A maximum of 40 academic researchers will receive assistance with support increasing proportionately if fewer letters of application are submitted to Professor Thomas Edgar at the University of Texas. Advertisements are to announce the availability of travel grants after both conference programs are finalized. Process control in the chemical industry helps to ensure consistent product quality and to reduce production costs so that this sector of American industry and others which depend on the chemical industry may be more economically competitive. ` IBMDOS COM' ` AUTOEXECBAK s" Õ FLW K PSFONTS K ! 89DECS PRE .N T"" AUTOEXECBAT i J BURKA PRE dP #zs SAVERS j " ICONS j " LM Y 9319949 University of Texas-Austin Thomas F. Edgar ABSTRACT The purpose of this award is to help sup port travel costs / 1 ; = 1 ! ! ! F 1 1 ( Times New Roman Symbol & Arial Apple LaserWriter II NT LPT3: pscript Apple LaserWriter II NT U D o d , X Z e Apple LaserWriter II NT U D o d , X Z e " h , , 1 Nichelle Coward Nichelle Coward